Mathematical Aspects of IIA-IIB Models of Superstring Theory

Borisov will study in detail the IIA-IIB superstring theories
that correspond to Calabi-Yau hypersurfaces in toric varieties.
The goal is to provide geometric meaning to the combinatorial
construction of N=2 vertex algebras associated with such theories.
In another part of the project, Borisov will try to prove the
derived equivalence conjecture for K-equivalent algebraic varieties.
His approach aims at defining a triangulated category of
any log-terminal pair, which would extend the notion of the
derived category of a variety to this more general context.
Finally, Borisov will strive to settle a puzzling discrepancy between
the numbers of parameters of deformation of small quantum cohomology
of a DM stack and of those of a crepant resolution of its
coarse moduli space.

Generally, Borisov will try to build mathematical tools necessary
for further development of string theory. In the particular flavor
of string theory that Borisov's project is related to, strings
are expected to propagate on a "small" space of dimension six with
very peculiar properties. Borisov's approach may generalize this small
space to other mathematical data, which may potentially increase the
flexibility of the theory.